Performance-Based Professional Development and Assessment for Teachers of Mathematics and Science

9731322 Wurzbach The Council of Chief State School Officers has been engaged in working with states to identify new approaches to initial teacher certification through the Interstate New Teacher Assessment and Support Consortium (INTASC). This project will support specific pieces of that effort that target mathematics and science. The first component trains practicing mathematics teachers in a selected number of states to provide support to beginning teachers who are developing mathematics portfolios and to master procedures for scoring the portfolios. The second component focuses on refining science portfolio guidelines based on field test results.